Ultrafast Spectroscopic Studies of the Organization and Dynamical Properties of Organic-Modified Interfaces

This research project, supported by the Analytical and Surface Chemistry Program, studies the dynamical behavior of tethered chromophores in self-assembled organic overlayers. Using steady state and ultrafast laser spectroscopic probes and the evolution of fluorescence from the chromophore, the reorientation dynamics of the tethered probe molecule will be examined as a function of its micro-environment. This information will be useful for the design of interfaces with highly specific properties. This study will provide the first dynamical information about these interesting and important material systems. %%% The molecular level organization and time-dependent behavior of molecules imbedded in organic overlayers is the subject of this research project. Using short time scale spectroscopic methods, the behavior of probe molecules in self-assembled monolayers will be examined. Information about the dynamics of these organic overlayers is essential to the eventual application of these materials in useful electronic devices.